US-France Cooperative Research: Sex Cell Isolation and Characterization in Crop Plants

This award will support collaborative research between Dr. Lloyd Mogensen, Northern Arizona University and Dr. Christian Dumas, University of Claude Bernard Lyon I, France. The research will focus on the isolation and characterization of male and female gametes from three important crop plants, corn (Zea mays), wheat ___ ____ (Triticum aestivum) and cabbage (Brassica oleracea). Isolation ________ ________ ________ ________ procedures, gamete membrane and protein studies, cytochemistry, stereology, and cryostorage studies will be carried out by the French research team. The portion of the cooperative research to be done at Northern Arizona University deals primarily with detailed structural analyses of isolated sex cells, specifically, computer-generated reconstructions and computer-assisted quantitative ultrastructure based upon complete serial ultrathin sections. The experience of the U.S. and French investigators in quantitative, three-dimensional ultrastructure and their past and present work on structural analyses of male and female gametes of several flowering plants, including corn and wheat, make the proposed cooperative research well suited for the two laboratories involved. A pilot study, already initiated, has demonstrated the feasibility of the collaborative investigation. A long-range goal of this research is to be able to control and manipulate the fertilization process for crop plant improvement.